Numerical computation and qualitative properties of nonlinear Partial Differential Equations

Award Abstract 0504720, J Szeftel, Princeton University

Title: Numerical computation and qualitative properties of nonlinear Partial Differential Equations

The principal investigator proposes to work on three problems in applied
mathematics. The first problem is related to the design of absorbing
boundary conditions for nonlinear partial differential equations. The main
goal is to obtain absorbing boundary conditions for systems such as those
of fluid dynamics. This work will contain numerical computations as well
as advanced microlocal analysis. The second problem deals with the
optimization of the transmission conditions in domain decomposition
methods. The principal investigator intends to use the absorbing boundary
conditions designed for nonlinear partial differential equations to
optimize the transmission conditions. This project will contain in
particular numerical computations. The third area of work deals with
long-time existence for nonlinear partial differential equations on
compact manifolds. The aim is to improve the estimate on the time of
existence given by the local existence theory for solutions of nonlinear
partial differential equations. The mathematical techniques will involve
advanced tools in analysis.

This project focuses on three problems, two problems being related to
numerical analysis and one to qualitative properties of nonlinear partial
differential equations. The suggested works involve very interesting
mathematical questions and at the same time are important for
applications. The first and the second problem tackle with the numerical
computation of huge systems and have therefore applications in numerous
areas such as environmental sciences (oceanography and meteorology) as
well as medicine (simulation of blood flows in human vascular system).
While it is too soon to appraise the wide societal impact of the third
problem, the last decades have seen stunning applications in many fields
(e. g. environmental sciences and dynamic of populations to name just a
few) of the study of qualitative properties of partial differential
equations. These three proposed problems will solidify important
connections between area of modern mathematical research such as numerical
analysis, nonlinear partial differential equations and advanced microlocal
analysis. The principal investigator will disseminate results of the
project among both applied and pure mathematicians.